International Research Fellowship Program: Neural Correlates of Grammatical Gender Processing in German

0202686
Hernandez

The International Research Fellowship Program enables U.S. scientists and engineers to conduct three to twenty-four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad.

This award will support a twelve-month research fellowship by Dr. Arturo Hernandez to work with Dr. Angela Friederici at the Max Planck Institute for Cognitive Neuropsychology in Leipzig, Germany.

This project will involve the exploration of the neural correlates of grammatical gender processing in German. The PI will explore the nature of gender processing in a three-gender system and studies which compare gender decision to error detection. These studies are expected to further extend our knowledge about the neural correlates of grammatical processing. This work will involve a new line of research on the neural correlates of second language processing.

The Max Planck Institute will provide access to a state-of-the-art Magnetic Resonance Imaging System especially designed for psychological experimentation.